Supramolecular Self-Assembly of Second Order Nonlinear Optical Materials for Electro-Optic Devices

This proposal describes a program aimed at the realization of large second-order nonlinear optical coefficients in polymer thin films that exhibit high thermal, mechanical, and chemical stability. It can be achieved by controlling the molecular orientation of active chromphores into noncentrosymmetric assemblies at nanoscale levels. Specifically, the approach is to design and fabricate the organic thin films by using unique self assembly of multilayers in which alternative subnanometer thick layers of oppositely charged anions and cations are built by alternately dipping a solid substrate into solutions of oppositely charged polyelectrolytes. In preliminary studies the group has grown films consisting of 100 such bilayers. These films are robust, and no degradation of the second order nonlinearity was observed over two years under ambient temperature and more than 18 hours at 150oC. However, further investigation showed that the net orientation of the chromophores was only 2%. The aim of this proposed research is to improve the degree of orientation by using the novel molecular self-assembly concept and by using surface angle and optical measurements to determine the degree of orientation.